Engineering Research Equipment Grant: Ductile-Regime Grinding of High Precision Glass Components

The Engineering Research Equipment grant is to acquaint various components for building ductile-regime grinding apparatus, which will be used in a series of experimental investigations of the material-removal process on glass substrates. The objective of the research is to explore new processes for the production of high precision components from brittle materials.